European Gordon Research Conference on Solid State Chemistry; September 20-25, 1997; Queens College, Oxford, England

DMR-9707358 Partial support is being provided for the symposium entitled European Gordon Research Conference on Solid State Chemistry to be held at Queens College, Oxford, England, September 20-25, 1997. It will bring together researchers with expertise in a broad range of topics considered to be at the forefront of global issues in solid state chemistry and materials. The support will be provided for the educational aspects of the conference, namely to provide money for a "scholarship" program to support 10 U.S. contributions from students, postdocs, and new faculty, and for registration and partial travel support for other U.S. participants of renown in the area of solid state chemistry and materials. The cost of U.S. participation in this international meeting is being cost shared by the Gordon Research Conference. %%% This is one of four major meetings on solid state chemistry occurring in 1996-1997 that will receive NSF support and which together will help to serve as an information base for the NSF Workshop on Solid State Chemistry to be held late in 1997. The purpose of this meeting is to bring together international researchers with expertise over a broad range of topical areas in solid state chemistry and materials to survey those considered to be of high priority by the international community. ***